Quanatitative Analysis of Fracture Surfaces Using Stereological Methods

Serological techniques are examined to improve the geometric characterization of fracture surfaces and microstructural features in three dimensions. This research is based on a solid foundation developed in past research by the principal investigators in the areas of experimental measurements, computer simulations, and theoretical stereology. Emphasis is placed on techniques to estimate spatial distribution of microstructural features in three-dimensions from measurements on plane sections; quantification of anisotropy of fracture surfaces and microstructural features from plane section measurements; and quantification of fractal characteristics and surface roughness of fracture surfaces from fracture surface profiles. Although the research centers on 4340 steel, copper, and a metal-matrix composite, the science applies to all materials.